EITM Competition: Graduate Student Training

This Empirical Implications of Theoretical Models training award affords the student the opportunity to take an additional year of advanced training (not available at her home institution) at Princeton University. The training involves courses in formal modeling and statistical techniques. The training will strengthen considerably the student's research skills as she undertakes a Ph.D. dissertation of bargaining in the process of coalition formation.

The training has the broader social value of enhancing understanding of bargaining and coalition formation and strengthens the research and teaching skills of this future member of the professorate.